REU: Undergraduate Research Opportunities in Biology

9300330 Bierzychudek This award provides funds to the Department of Biology at Pomona College to establish a Research Experiences for Undergraduate Site. The program will provide full-time summer stipends for eight students, and part of semester- long academic year stipends for 10 more to work jointly with faculty advisors on a variety of projects in the biological sciences, including molecular biology, population and behavioral biology, physiology and cell biology. Support activities will ensure that students have ample opportunity to develop independence, to discuss their work with one another, and to draw together their results for presentation to others. In addition, activities are provided to encourage younger students to consider engaging in a research experience. Significant numbers of women, underrepresented minorities, and students from schools where research opportunities are limited will be involved in the program. ***